Variational Analysis for Practical Optimization

Lewis
DMS-0806057

The investigator and his students study the interplay
between variational analysis, intuitive, possibly randomized,
general-purpose nonsmooth optimization algorithms, and
applications to concrete models, particularly in robust control.
A paradigm, originating with Demmel in the 1980's, relating
conditioning, ill-posedness, and computational speed, inspires
the investigator's thinking. The study of matrix pseudospectra
powerfully illustrates the general technique: fundamental
indicators of transient dynamical behavior, pseudospectra have a
rich structure, blending complex and matrix analysis,
semi-algebraic geometry, and numerical linear algebra, all
ingredients in pseudospectral optimization. Semi-algebraic
geometry in particular is developing into a fundamental tool not
just in applications such as pseudospectra, but throughout
variational analysis. The investigator uses this approach, for
example, to study novel structural tools such as "partial
smoothness", thereby analyzing convergence rates observed in
computational practice. Fundamental to the investigator's
approach is a complex blend of variational analysis, classical
mathematics, numerical computation, and applied modeling.

Often the designer of a complex engineering system varies
certain features in order to optimize some aspect of system
performance. A simple example is a shock-absorber: by varying
the grade of lubricant it contains, the manufacturer can modify
how stiff a suspension system feels. Finding optimal choices for
damping vibrations in such a physical, electronic, communications
or information system is "nonsmooth": choices are very sensitive
to slight changes in the system, one reason they seem hard to
compute. The investigator facilitates this important but
challenging optimization process by blending mathematical
modeling and analysis with scientific computation. He
disseminates his research energetically through expository and
technical publications, high-profile lectures, and online, to
diverse international scientific and engineering audiences. As
an integral part of the project, the investigator's PhD students
develop crucial skills bridging divisions between sophisticated
mathematical theory and the many practical applications of
nonsmooth optimization.